Engineering Creativity Award: New Approach to the Growth Rate of Cells Under Limiting Conditions

The research deals with the growth rate controlling in cellular metabolism and the role that internal or external mass transfer play in controlling or inducing cellular growth. A modeling approach is taken; experimental techniques are investigated to verify the model predictions. At first the research uses relationships of Monod equations. This project is one supported under the Creativity Awards for Engineering Students.